Cortical Cytoskeleton and Spatial Control of Cytokinesis

The PI has identified, through immunocytochemical methods, hitherto unreported cortical proteins in plant cells. Using biochemical and immunocytochemical techniques, the PI will characterize these proteins and study their possible role in cell division.